Combinatorial Structures for Permutation Enumeration and Diagonal Harmonic Modules

The PI plans to pursue research in three different areas. First the PI
plans to extend the work of Brenti, Remmel, Beck, Langley, Wagner and
others who have used certain homomorphisms from the ring of symmetric
functions to a polynomial ring F[x], for an appropriately chosen field F,
to find new generating functions for permutations statistics. Recently
discovered methods by the PI and his students have produced many new
applications of these methods which allow one to find generating functions
for 321-avoiding permutations, alternating permutations, and permutation
enumeration statistics for various subgroups of the wreath product of a
finite group with the symmetric group. The PI plans to systemize and extend
such methods. Second, the PI plans to study the combinatorics of various
submodules of the ring of diagonal harmonics which is intimately connected
with the theory of Macdonald polynomials. The work of Garsia, Haiman,
Haglund, Loehr and the PI have lead to combinatorial interpretations of the
Hilbert series and the generating function for the occurrences of the
alternating representation in the character of such submodules under the
diagonal action in terms of counting various classes of labeled Dyck paths
according to certain statistics. More recently, Haiman, Haglund, Loehr,
Remmel and Ulyanov have given a conjectured combinatorial interpretation of
the coefficient of a monomial symmetric function in the Frobenius series of
the ring of diagonal harmonics. The goal of the PI's research in this area
is to prove some of these conjectures and to give a full combinatorial
interpretation of the Frobenius series of the ring of diagonal harmonics.
Finally the PI also plans to work on (p,q)-analogues of rook theory and
various extension of rook theory and the theory of enumeration of spanning
forests of various directed graphs studied by Egecioglu, Williamson and the PI.

This project is concerned with various problems which arise in the study of
algebraic combinatorics. In particular, the goal of this project is to
increase our understanding of how various classical combinatorial
structures such as permutations, lattice paths, spanning trees and
placements of non-attaching rooks on generalized chess boards play a
fundamental role in helping us understand certain algebraic structures.
Conversely, in algebraic combinatorics, one wants to understand how various
algebraic structures can give new insights into the theory of these
classical combinatorial structures. The three main areas of research
proposed in this project, namely the theory of permutation enumeration, the
theory of the ring of diagaonal harmonics and rook theory are all active
areas of research were there is a beautiful interplay between algebraic and
combinatorial methods.